Decoherence and Quantum Information Processing

This MPS Distinguished International Postdoctoral Research Fellowship (MPS-DRF) award supports a 24-month research project in the area of quantum information theory, a field that brings together various disciplines such as engineering, computer science, mathematics, and physics. The power of quantum information processing lies in the unique properties of superposition states and entanglement. Decoherence destroys the fragile superposition states and entanglement properties of the quantum bits of information. Sonja Daffer will work with Prof. Peter L. Knight, FRS and his group at Imperial College in London, England to study implementation and decoherence in quantum information processing.

Funding for this award is provided by the MPS Office of Multidisciplinary Activities.